WORKSHOP: Logic and Theorem Proving in Programming Languages

This grant provides partial support for a Summer School covering current research focused on integrating expressive logical systems and powerful theorem-proving assistants into the design, definition, and implementation of programming languages. Speakers will present material covering foundational theory, advanced techniques, and applications. The goal is to help graduate students and researchers from academia or industry understand the critical issues and open problems confronting the field. The broader impacts of the summer school include building a community of researchers around these topics, including expected international attendance. NSF funds provide support for US-based students and emphasize participation from underrepresented groups.